Postdoctoral Research Fellowships in Chemistry

Dr. Elizabeth M. Sanford has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Sanford's doctoral degree was from UCLA under Professor Francois Diederich. She intends to continue research with Professor Jean Frechet at Cornell. In Frechet's laboratory, she will learn the synthetic techniques for creating particularly large structures and characterizing them. She will also gain experience in the techniques of polymer chemistry. These skills will help prepare her for her long-range goal of preparing polyporphyrin dendrimers for the study of electron transfer. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.